Coordination and Student Support for the Super Dual Auroral Radar Network (SuperDARN) Workshop; Fairbanks, Alaska; May 29-June 3, 2016

This award provide support for the annual SuperDarn workshop to be held at the Geophysical Institute, University of Alaska in Fairbanks. The award would provide student travel support as well as other auxillary conference expenses including the expense required to enable visitors to visit the Poker Flat Rocket Range. This award is co-funded between the AGS-Aeronomy program and the PLR - Polar Programs (Antarctica), Astrophysics and Space Sciences.